The Purchase of Earthquake Insurance in California: The Impacts of the Loma Prieta Earthquake

This project focuses on lessons that can be learned from the October 17, 1989 Loma Prieta Earthquake. The proposed research deals with the economic and social aspects of the Loma Prieta earthquake, focusing on earthquake insurance issues, impacts of the earthquake on the behavior of individuals, and changes in perception of the earthquake hazard following the earthquake. It involves a re-survey of California homeowners whose attitudes towards the earthquake hazard and insurance purchase decisions were assessed in May of 1989, as well as a supplemental survey of residents of Santa Clara county. In this project, the impacts of this earthquake on shifts in attitudes towards earthquake hazards in general and the purchase of earthquake insurance in particular will be tested as well as the impact of geographic location of the household with respect to recent property damage on subsequent insurance purchase.